Doctoral Dissertation Research: The American Nonvoter: The Two Faces of Electoral Nonparticipation

9308081 Norpoth This doctoral dissertation research project examines the two stages of voting decisions in presidential elections. Electoral participation is of critical importance in both democratic theory and policy reform proposals, and has been extensively studied. While much of the past electoral research has acknowledged the two steps of participation in the United States, registration and then actually going to the polls, few have modeled these two stages explicitly. Considering nonvoters as a unitary group in a single model may have serious implications for model specification and the conclusions which have been drawn, because as Merriam and Gosnell demonstrated, "entirely different reasons (for not voting) were emphasized by those who were registered than by those who were registered but did not vote." This research first examines the three distinct groups of the electorate (non-registrants, registered nonvoters, and registered voters), for comparisons across a number of demographic and attitudinal variables. The next phase of research translates the two stage conceptualization into an appropriate selection bias model of turnout. Finally, the conclusions of past research about the effects of easing registration requirements will be re-examined in the properly constructed two stage model. This research agenda presents a different analytic approach to the accepted conceptualization of turnout which will aid in understanding electoral frameworks, policy impact analysis and the interpretation of recent history. ***